Mathematical Sciences: Special Year in Model Theory and Universal Algebra

This project is concerned with two mathematical subdisciplines: model theory and universal algebra. Until recently there were two distinct branches of model theory: classification theory and model theoretic algebra. In the past decade, the boundary between these two areas has become blurred. Algebraic techniques have become a necessary ingredient in most of the exciting recent results in model theory. In the last fifteen years universal algebra has acquired two powerful new tools: commutator theory and tame congruence theory. These have been used to settle a number of problems, including questions in decidability. There are also several important intersections between model theory and universal algebra. This project will support a special year in model theory and universal algebra to be held at the University of Illinois at Chicago in 1991-92. The year will feature long term visits by internationally prominent researchers and short term visits by leading experts in the fields.